Control of the "Arribada" Mass Nesting Behavior in Ridley Sea Turtles

Fundamental research aimed at elucidating principles that underlie the conservation and restoration of biological diversity is of utmost importance. This is the priority of Dr. Owens' own research program. His goal is to determine the interrelationship between endocrine systems, behavior and environmental cues of one of the most endangered species, the Kemp's ridley sea turtles. Presently, we know very little about the biology of this population which is now nearing extinction. Along with graduate students from the United States and students and senior scientists from universities in Costa Rica, Dr. Owens plans to capture by hand the turtles an then prepare them for sonic and radio tracking. Tracking the animals will provide important information about their aquatic environment and social systems. In addition, blood and cerebrospinal fluid samples will be taken for subsequent hormone analyses. The extensive endocrine measurements will be used to evaluate the physiological components of their behaviors, especially reproduction. Dr. Owens extensive involvement with the Costa Rican students and scientists represents a true collaboration dedicated towards understanding the conservation of these animals within their natural habitat. The outcome of this work will be instrumental in establishing successful captive breeding programs.